Acquisition of a Gas Source Isotope Ratio Mass Spectrometer

0216017
Holk

This Major Research Instrumentation (MRI) award will provide partial support for the acquisition and installation of a gas-source isotope-ratio mass spectrometer in the Department of Geological Sciences at California State University, Long Beach (CSULB).. This mass spectrometer will enable research projects to be implemented by a consortium of stable isotope researchers at CSULB and California State University, Fullerton (CSUF). Areas of research to be carried out using this instrumentation include hydrogeology, the fluid evolution of the crust of the Earth, the origin of magmas, ore deposits, diagenetic processes in sedimentary basins, and the effect of water on deformational processes. Research opportunities involving stable isotopes will now be available to undergraduate students and this technology will be incorporated into the curriculum of many courses offered in geochemistry, petrology, and hydrology both at CSULB and CSUF. Thus, this instrument is expected to have immediate impact by servicing the teaching and research needs of the California State University, the largest educational establishment in the United States, as well as the most populous and ethnically diverse metropolitan area on the West Coast.
***